New Patterns of Interaction in Internet-Based Mathematics

SGER- 9814593

Bancoff

Recent developments on the Internet and specifically designed course communications software are combining to make possible new modes of interaction between students and instructors and among students. At Brown University, in a multivariable calculus course for freshmen and an introductory interdisplinary course on the Fourth Dimension for students at all levels, the Principle Investigator and his student associates have begun to develop structures that allow for an expanded range of student response, encouraging deeper levels of participation from students who ordinarily do not do well in conventional timed examinations or in intense classroom or small group discussion.